Synthesis of Methanofullerenes for the Fabrication of New Organic Materials: Environmentally Stable Metals and Superconductors

Abstract 9500888 Wudl The objective of this research is to continue the development of molecules which are designed to be molecular precursors to organic metals and high-temperature organic superconductors. Three approaches will be pursued: (a) synthesis of new methanofullerenes consisting of variously substituted C61 and C66, (b) preparation of new materials based on periconjugative effects of methanofullerenes C61-C66 with electron rich and super-electron rich olefins as well as alkali metals, and (c) preparation of new materials based on new electron donor methanofullerenes. Once prepared, the physical properties of solids will determined using the latest developments in experimental condensed matter physics, in collaboration with other groups. %%% It is a rare event in the history of science when a new starting material is uncovered for chemical transformations and the eventual development of exotic compounds and novel materials. That is the case with the discovery of buckminsterfullerene (C60 ) and the fullerenes. The family of spherical and oblong molecular allotropes of carbon, the fullerenes are formed at temperatures upward of 2000 C, yet the smaller, isolable and characterizable members of a large family are reactive molecules at room temperature. Because C60 (and C70) is a relatively strong electron acceptor, it is of interest to explore its reactions with a number of diazomethanes. This research has led to the discovery of methanofullerenes and fulleroids, functionalized fullerenes. The proposed work is the continuation of prior studies in the same area. Ultimately, these and other related new compounds may be utilized for the fabrication of novel molecular metals and superconductors.